Light Scattering and Spectroscopy in Dense Plasmas (Physics)

Research will be carried out on the basic physics of dense plasmas by light scattering and spectroscopic methods using three plasma devices: pulsed arc, laser-produced plasma, and high field z-pinch. These plasmas cover a large range of coupling parameters, with emphasis on values of order one. Light scattering measurements will be performed to determine electron density fluctuation spectra, especially at relatively low frequencies. Spectral line profile measurements will yield information on electric field fluctuations in dense plasma and their effects on atomic systems. Auxiliary diagnostic measurements will be made to characterize the plasmas more fully so that meaningful comparisons can be made with the theory of fluctuations and transport in dense plasmas.